NMR Spectroscopy in Undergraduate Laboratories

Purchase of a 300 MHz nuclear magnetic resonance (NMR) spectrometer will provide the basis for laboratory curriculum development in years 2, 3, and 4 of the undergraduate program. Following recent laboratory renovation and conversion to microscale experiments, new experiments will be introduced into the sophomore organic laboratories which require the sensitivity and resolution of this high field instrument. In the senior organic course in qualitative organic analysis, a research component involving 2-D examination of earlier spectral assignments for complex molecules will be introduced. In the senior organometallics laboratory course, new experiments will utilize multinuclear NMR to characterize transition metal complexes and illustrate important concepts not possible to demonstrate with presently available equipment. In physical chemistry laboratory, experiments involving gas phase kinetics as well as relaxation phenomena will be introduced. The instrument will also be used in a newly organized undergraduate research program.